Ab Initio Molecular Electronic Structure Computation on Parallel Computers

With support from the Theoretical and Computational Chemistry Program, and of the New Technologies Program of the Division of Advanced Scientific Computing, Professor King and Dr. Furlani will implement large scale ab-initio electronic structure computations on distributed memory MIMD computers. Algorithms will be designed to achieve efficient interprocessor communications, load balance, overlapping of message passing with computation, and machine portability. A direct self-consistent-field program will be developed for very large orbital basis sets, e.g., N=4000, on machines with a hundred or more processors, with 5 MBytes of local memory and no disk storage. The integral evaluation and matrix diagonalization computational load as well as the matrix storage memory will be distributed over the processors. Applications will include large molecules of biological interest and loosely bound molecular clusters. Short range dynamic electron correlation in small atoms, molecules, and soluble model systems will be investigated for the purpose of extrapolating the results of accurate configuration interaction calculations to the complete orbital basis set limit. %%% The results of this project will make supercomputers with parallel architectures much more useful to chemists, making it possible to do theoretical calculations on much larger chemically interesting systems.